Examination of Career Options in the Natural Sciences by Young Scholars

Fifteen young scholars will examine career options in the natural sciences (wildlife ecology, fisheries/aquaculture, or museum science) in a residential setting at Texas A & M University. Project activities include 14 days of instruction, problem solving, exposure to the research environment and contemporary methods, career exploration, and consideration of the philosophy and ethics within the natural sciences. Young scholars will enhance their career planning through identification of options, discussions with career professionals, and on-site visits to selected research and educational facilities. A planned 2-3 year follow-up of participants will determine the degree to which project goals were achieved.